Travel Grant for the 25th International Cosmic Ray Conference

This grant will subsidize the travel costs of several participants in the 25th International Cosmic Ray Conference. Research in this field involves participants from many countries and this conference allows them to meet and discuss progress in the field. This grant will enable younger scientists to participate.